EPSCoR Research Fellows: NSF: Reconstruction-Aware Ultrafast and Widefield Optical Coherence Tomography Angiography

This Research Infrastructure Improvement (RII) EPSCoR Research Fellows project provides a fellowship to an Associate professor and training for a graduate student at the University of Oklahoma. This work is conducted in collaboration with Dr. David Huang at Oregon Health & Science University. Through the fellowship, the PI will study how prior knowledge about an imaging target can be used to design faster and more effective imaging methods. Specifically, the research team will use advanced artificial intelligence and computational techniques to develop a new eye-imaging system that can capture a larger area in less time. This technology could support a range of clinical applications in which diagnostic images must be collected within a limited time window. This work will combine computer science, optical science, and clinical science, and will strengthen both vision-health research infrastructure and biomedical imaging capability in the state of Oklahoma.

The project will establish a reconstruction-aware ultrafast and widefield optical coherence tomography angiography (OCTA) system. The intellectual merit of the project lies in its unified approach to jointly optimizing data sampling, image reconstruction, and hardware operation. By representing the physical imaging process mathematically, the project enables the hardware design and computational algorithms to be optimized together toward a specific objective, resulting in improved imaging performance. This fellowship will install the first ultrafast and widefield OCTA system in Oklahoma, expand the biomedical imaging research infrastructure, strengthen the collaborations with Dean McGee Eye Institute, and create training opportunities for graduate students in computational imaging as well OCTA instrumentation. The project will integrate research, workforce development, student training, and cross-campus collaboration to advance artificial intelligence applications in biomedical imaging in Oklahoma. This project is supported by the EPSCoR Research Infrastructure Improvement Program: EPSCoR Research Fellows (ERF), which supports early- and mid-career investigators in eligible jurisdictions to develop collaborations at the nation’s private, government or academic research institutions.